Doctoral Dissertation Research in Political Science

Few political analysts would disagree with the statement that economic conditions are important to voters. How the economy fares, to one degree or another, determines whether members of the electorate will support the reelection bid of the governing party (or parties). In this Doctoral Dissertation Research Support project the investigator begins with the premise that economic conditions influence support for elected officials. What distinguishes this study from previous research is the assumption that voters judge the state of the economy primarily in local terms. What matters to the voters of Liverpool, England, is economic conditions in Liverpool. Prior studies have assumed that what matters to voters in places such as Liverpool is the state of the British economy. This investigation analyzes the effects of both national and local economic conditions on support for governing parties in Western Europe in national and subnational elections. Since voters get information about the economy in two ways, personal experience and from opinion makers, this study will provide new insights into where voters get their information. If, as the researcher assumes, the local economy matters, the study adds weight to the argument that voters learn about the economy through personal experience and not just via reports in the evening newspaper or on the local telecast. Thus, the study should provide information not only about whether or not the local economy matters, but also about how the local economy matters. Does it matter only for local and regional elections? Or does it matter for national elections as well? The results of this investigation will be of interest to social scientists and analysts far removed from political science. Economists will be interested in how the public forms economic judgments. Sociologists will appreciate the explicit role which the general level of economic and social development play in this study. Political actors will also have reason to take note of the conclusions of this study. If local economic conditions count, political parties and elected officials gain leverage in their own reelection attempts. Local economic conditions are more easily adjusted for short-term political gain than national economic conditions.